Mathematical Sciences: Geometric Applications of Global Analysis: Moduli Spaces and Harmonic Maps to Infinite-Dimensional Manifolds

9403784 Poritz The topics covered in the research involve moduli problems and gauge theory relative to vector bundles over punctured Riemann surfaces. Such notions have potential applications to aspects of mathematical physics involving integrable systems and soliton theory. Harmonic map techniques will be applied to tackle rigidity questions of actions of lattices on compact manifolds. ***